Sustainability and Green Energy (SAGE) Across the Curriculum

The Sustainability and Green Energy Across the Curriculum (SAGE) project will build regional capacity in Massachusetts to educate the next generation of green engineering technicians. SAGE is (1) infusing the principles of sustainability and green energy technologies into all technical education programs at Bristol Community College (BCC), (2) restructuring BCC's Engineering Technology curriculum to offer a Green Building Practices Certificate and a Green Energy Technology degree, (3) providing BCC Engineering Technology faculty and other regional college and high school faculty with professional development in sustainability and green energy, (4) increasing retention rates of BCC's Engineering Technology students by expanding student support services and SAGE activities, and (5) introducing high school students to sustainability and green energy principles and careers.